Symplectic geometry, physics and algebraic combinatorics

Abstract

Award: DMS-0093647
Principal Investigator: Christopher T. Woodward

The principal investigator plans to develop the theory of group
actions on symplectic manifolds and geometric invariant theory,
and extend applications to certain 2d conformal field theories
and algebraic combinatorics. In particular, he will investigate
the theory of loop group actions, group-valued moment maps, and
relations to the Wess-Zumino-Witten model in conformal field
theory and cohomology pairings on moduli spaces of flat
connections; the asymptotic limit of the quantum 6j symbols; and
decomposition of products of conjugacy classes in disconnected
compact groups and twisted forms of quantum cohomology. He will
integrate his research with a variety of educational projects,
such as dynamical systems in the calculus and linear algebra
sequence at Rutgers; strengthening the joint major with computer
science; laboratory activities in the undergraduate curriculum
and evaluation of their effectiveness.

Symplectic geometry is the mathematical framework for the study
of classical mechanics, and in particular Hamiltonian dynamical
systems. Woodward will undertake a number of projects to develop
the field and its role in the undergraduate and graduate
curriculum. He will seek to understand symmetries, especially of
infinite dimension, in this setting. Possible applications
outside of mathematics are the development of new computational
techniques in conformal field theory, an important topic in
recent high-energy theoretical physics, and improvement of the
efficiency of wireless communication, via the construction of
better packings in the unitary group.